ITR: Long-Lived Information Artifacts Based on Short-Lived Administratively-Decentralized Source Material

The sheer size of the World-Wide Web mandates the provision of portals, hotlists, and other catalogs that organize Web content in a domain-oriented manner. However, the quality of the information contained is subject to degradation as content changes, sites reorganize, and host connectivity fluctuates. Simply detecting that a resource has changed is easy, but determining whether that change is significant requires understanding of the context in which the resource is used. This project will improve the stability of collections of Web pages, allowing the development of predictable collections that overcome the inherent instability of the World-Wide
Web. To accomplish this goal, the project will investigate the applicability of semantic descriptors provided by collection creators and implicit contextual information extracted from the collection.